Mathematical Models for Elicitation in Bayesian Regression

This research program will develop the mathematical theory underlying the elicitation of probability distributions for use in Bayesian regression analyses. Incorporating expert opinion in the form of probability distributions in essential in applications for which available data are insufficient for obtaining precise parameter estimates using classical estimating techniques, but for which substantial information is available in the form of expert knowledge. Four objectives of Phase I are (1) investigate the relaxation of assumptions underlying existing elicitation models; (2) develop theory to exploit the structure of special cases of the normal linear model; (3) develop methods for eliciting prior information about common statistical models other than the normal linear model; and (4) develop improved computational techniques when expert judgements do not lead to closed-form solutions for prior parameters. Phase II would develop theory more extensively and build a general Bayesian regression software package.